Geometry and Topology of Moduli Spaces of Parabolic Bundles, Toric Varieties, and Partial Flag Manifolds

DMS-0072520
Philip Foth

The PI will study the topology of certain algebraic
varieties by methods of Poisson geometry. Many interesting
varieties admit Poisson structures such that the closures
of the symplectic leaves for such structures additively
generate the homology. Moreover, one can ask for certain
quite strong invariance and asymptotic properties of those
Poisson structures so that the complete information about
the (equivariant) cohomology of these varieties may be
obtained by studying the corresponding Poisson harmonic
forms. In addition, if the algebraic variety in question
is smooth and has an invariant Kaehler structure such that
the Kaehler form is compatible in a certain sense with
the Poisson structure, then one can hope to find such
Poisson structures on the GIT quotients of the variety
using the correspondence between the symplectic and GIT
quotients. In addition, one can hope to study the Chow
quotients by similar methods. One also hopes to obtain
new integrable systems in this context or throw a new
light on already known ones. The varieties which fall
into the scope of interest of this project include (partial)
flag manifolds, the moduli spaces of parabolic bundles,
toric varieties, and others. There is also a connection
between these topics and formal geometry and deformation
quantization.

The PI would like to understand the topology (underlying
structure) of certain spaces that appear in different
branches of science such as geometry and theoretical physics.
The results that PI intends to obtain are likely to
have applications to topological, conformal, and quantum
field theories, as well as strings and mirror symmetry.
In these endeavors the PI plans to apply methods of
algebraic and differential geometry and the formal
algebraic apparatus. The spaces under investigation come
naturally equipped with rich algebraic and geometric
structures. Some of these spaces appear as quite
classical objects (like grassmannians) and some of them
are more sophisticated (like moduli spaces). The PI is
looking forward to further unveiling these
structures and relating them to known phenomena
sometimes crossing interdisciplinary borders.